Solar Differential Rotation and Its Connection to Solar Variation

So far, there is no definitive proof of a causal connection between sunspot cycle and the Earth's climate, but a large collection of suggestive correlations and circumstantial evidence have been compiled. The recent discovery of the positive correlation between the level of solar activity and the total solar irradiance over a solar cycle provided a physical ground for an activity-climate relationship. During a solar cycle, the total solar output varies but the measured change is relatively small, but it is legitimate to expect that during the prolonged period of low solar activity, the solar output may drop substantially. This makes the association of a Maunder-Minimum- like event (low sunspot numbers for several decades) to a cooler climate more plausible. An important question relating to the study of causal connections between the sun and Earth is: What is the basic mechanism that connects the solar activities to the variation of solar output? This study aims at eventually answering this question. Presently, there are two steps to take: (i) to develop a solar differential rotation model which agrees with the results of helioseismology; (ii) to relate the temporal variation of the solar differential rotation with the change in conditions of the convection zone. The first step is a prerequisite for understanding the solar dynamo which is the basis of solar activities. The second step explores the application of the knowledge of differential rotation to diagnosing changes of the solar interior. A combination of analytical and numerical techniques will be used to accomplish these tasks. ***